Mathematical Sciences: International Conference on Random Mapping, Partitions and Permutations; Los Angeles, California; January 1992

The application of probabilistic methods to combinatorial enumeration has grown into an independent area of mathematics. There has recently been a resurgence of interest in classical combinatorial objects such as mappings, partitions, and permutations. These objects provide a source of problems of both theoretical and practical importance. This project will provide support for the International Conference on Random Mappings, Partitions, and Permutations to be held January 3-6, 1992 at the University of Southern California.